Summer Economics (June-July 2003, 2004, & 2005,Stony Brook, NY)

The series of annual summer activities of the Center for Game Theory in Economics is designed to stimulate and disseminate new advances in research on game theory and its applications, and to make conceptual and methodological developments in game theory available to an expanding group of scientists in economics and other disciplines. Each summer there are research-oriented conferences and workshops and, upon occasion, an intensive course of instruction on a topic of major significance, complemented by a further period of informal research activities. This series brings together a large international group of researchers--a mix of established scholars, junior faculty, and graduate students--whose interests represent a diverse array of theoretical and applied aspects of game theory. The programs for 2003-2005 are a continuation of the series of summer activities held at Stony Brook from 1990 to 2002, each of which attracted about 120 participants on average. Formal activities normally include a five-day conference with plenary and parallel sessions, and invited and contributed papers; two workshops on selected themes; and from time to time one to two weeks of intensive instruction on selected topics. The value of this format and approach is evidenced by the success of the previous programs.